CT-ISG: Diaspora: A Secure, Reliable Federated Execution Platform and Object Store

NSF-0627649

TITLE CT-ISG: Diaspora: A Secure, Reliable, Federated Execution Platform and
Information Store
PI Andrew Myers

It is difficult to coordinate computation and to manage information
across organizational boundaries and wide-area networks. To address this
problem, this project develops a distributed, federated platform
for secure, distributed computation over consistent, durable objects.
The platform is a universal system for managing structured
information and securely computing on it, allowing allow very large
numbers of objects to be linked together on behalf of many mutually
distrusting users, while giving users control over where objects are
stored. This enables organizations to cooperate in a fine-grained,
low-cost way, with benefits for many activities including education,
medicine, business-to-business transactions, corporate and military
information systems, and large-scale cooperative information resources.

The project goes beyond previous distributed systems platforms in
several ways. It provides integrated support for both distributed
storage and distributed computation, whereas previous platforms have
focused on one or the other. It supports cooperative sharing of
information and computation even when the cooperating entities do
not fully trust each other. And it aims to automatically enforce a
larger class of desirable system properties: not just security or
availability narrowly defined, but also properties such as consistency,
confidentiality, integrity, efficiency, and durability. Replication,
encryption, and distributed commit protocols make it possible to
automatically ensure the consistency, integrity, and availability
of persistent information. A high-level language with security and
consistency annotations enables programmers to easily write code for
this system, using a compiler that transforms code and data to produce a
secure, reliable, and efficient system.